PostDoctoral Research Fellowship

This is a Post Doctoral Fellowship project that supports the research and trainging of Post Doctoral Fellow Dr. Alessandro Jaker who will study under the direction of Dr. Siri Tuttle, University of Alaska Fairbanks, Alaska Native Languages Center. The project will extend the Fellow's research on how Dogrib and Chipewayan experienced a major prosodic shift (language tones) in their language. The Fellow proposes to do this through a detailed phonological study of northern Athabaskan languages including the collection of verb paradigms, elders' stories, and experiments aimed to assess consonant length and germination, and correlates of stress. An important part of the project is the documentation of these languages and the creation of language teaching and learning materials for use by heritage speaker communities.